Symposium on Non-Oxidic Solids to be held in Chicago, IL, August 20-24, 1995

9509249 Kanatzidis The proposed symposium is titled "Synthesis Reactivity and Properties of Non-Oxidic Solids". We chose this topic to highlight the significance of these materials to fundamental chemistry and to technology. Although the chemistry and significance of oxides is well known to the chemical community and well represented by a plethora of ACS and other symposia, in general non-oxides such as chalcogenides, halides, pnictides, borides, carbides and intermetallics have received very little attention, especially in ACS symposia. These materials impact both our understanding of fundamental chemical science and our technological progress in a major way. Little is known about these materials, and an ACS symposium will help in projecting the important issues and problems in this area to a broad chemistry audience and particularly to students and young researchers. The proposed symposium is very timely given the continuing strong interest in the properties of these compounds which include non- linear optics (chalcogenide, pnictides, superconductivity (borides), rechargeable batteries (hydrides), oxygen storage and transport (cyanides) and others. Emphasis will be given to new synthetic techniques, measurement and characterization and processing of non-oxidic solids. %%% To the best of our knowledge, this is the first symposium that focuses specifically on non-oxide solid state materials. ***